PostDoctoral Research Fellowship

The applicant will use this Polar Postdoctoral Fellowship to carry out a wide-ranging program in the anthropology of food among the arctic native people. The program encompasses archival research, ethnographic fieldwork in the Russian Far East, seminar participation at the Yale Institute for Social and Policy Studies, writing workshops, and a reading course, integrated within a study plan, to be carried out in the Department of Anthropology, Johns Hopkins University and at the Arctic Studies Center, Smithsonian Institution. Based on her prior ethnographic fieldwork in the Bering Strait, the work promises to reintegrate northern anthropology, by identifying common webs of significance that connect this work to other disciplines and inquiries conducted outside the circumpolar North, as well as by strengthening her relationships with her host communities in Chukotka and Alaska.